Crowdsourcing neuroscience: An interactive cloud-based citizen science platform for high school students, teachers, and researchers

Current priorities in school science education include engaging students in the practices of science as well as the ideas of science. This project will address this priority by developing a cloud-based platform that enables high school students, teachers, and scientists to conduct original neuroscience research in school classrooms. Before students and teachers initiate their own studies using the system, they will participate in existing research studies by contributing their own data and collaborating with researchers using the online, interactive system. When experienced with the system, students and teachers will become researchers by developing independent investigations and uploading them to the interactive platform. Both student-initiated and scientist-initiated proposals will be submitted to the platform, peer-reviewed by students and scientists, revised, and included in the online experimental bank. In addition to conducting their own studies using the platform, scientists will act as educators and mentors by populating the experiment bank with studies that can serve as models for students and provide science content for the educational resource center. This online system addresses a critical need in science education to involve students more fully and authentically in scientific inquiry where they gain experience in exploring the unknown rather than confirming what is already known.

This early stage design and development study is guided by three goals: 1) Develop an open-science citizen science platform for conducting human brain and behavior research in the classroom, 2) Develop a remote neuroscience Student-Teacher-Scientists (STS) partnership program for high schools, and 3) Evaluate the design, development, and implementation of the program and its impacts on students and tachers. In developing this project, the project team will link two quickly emerging trends, one in science education, and one in the sciences. Consistent with current priorities in science education, the project will engage students and their teachers in authentic, active inquiry where they learn scientific practices by using them to conduct authentic inquiry where a search for knowledge is grounded in finding evidence-based answers to original questions. On the science side, students and their science partners will participate in an open science approach by pre-registering their research and committing to an analysis plan before data are collected. In this project, students will primarily be using reaction time and online systems to do research that includes study of their own brain function. The project research is guided by three research questions. How does an online citizen neuroscience STS platform: a) impact students' understanding of, and abilities to apply neuroscience and experimental design concepts? b) Impact students' interests in, and attitudes toward science, including an awareness of science careers and applications? and c) Affect teachers' attitudes towards neuroscience teaching, and the use of inquiry-based strategies? A design-based research approach will be used to iteratively design a sustainable and scalable inquiry-based neuroscience curriculum with teachers as design partners.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.